CSR: Small: Scalable Fine-Grain Lineage for Debugging Data-Intensive Workflows

This project addresses the next major impediment to the continued adoption
of "big-data" analytics---the management of their life cycle, which
includes debugging, tuning, and auditing. Today, data-intensive analytics
are improving operations across multiple industries, translating terabytes
of raw data into useful data analysis. Taking advantage of big data will
be necessary to sustain competitive advantages for areas ranging from power
generation, to retail, oil exploration, manufacturing, various scientific
disciplines, and national security. However, the extreme scalability of
these data processing architectures hides inefficiencies and obfuscates
performance analysis, creating both obvious and hidden costs to their
adoption. Tuning and debugging large data-intensive workflows is currently
a black art that mostly consists of tedious manual analysis.

The research seeks to dramatically alter how data scientists design and
debug their analytics to sidestep this authoring and deployment bottleneck.
In particular, the PI's are developing scalable, efficient architectures
for capturing fine-grain data lineage, information that tracks the use of
data through the analytic pipeline, from a range of data-intensive scalable
computing (DISC) systems. Such lineage serves as a basis for discovering
inefficiencies and suggesting optimizations via step-wise debugging, fault
tracing, anomaly detection, and lineage-driven data cleaning and data
mining. The development and open-source release of such lineage-capture
and analysis platforms promises to dramatically accelerate the adoption of
big-data analytics.